Laboratory for Computational Astrophysics

This award will establish a Laboratory for Computational Astrophysics (LCA) at the University of Illinois, Urbana-Champaign as a joint venture between the National Center for Supercomputing Applications and the Department of Astronomy. At the heart of this laboratory is a new suite of application codes for astrophysical hydrodynamic, magnetohydrodynamic and radiation hydrodynamic simulations in one, two and three spatial dimensions implemented on NCSA's supercomputers. Several of these codes are already in use by national researchers on a variety of astrophysical problems. The central goal of the LCA is the development, dissemination and support of community codes for astrophysical simulation of general use to astronomical researchers.